Durational Patterns in Connected Discourse

The speech synthesis systems now available can produce speech whose
segmental properties mimic human speech remarkably well. However, synthetic
speech still often sounds unnatural, primarily because of the relatively
less successful modeling of the prosodic properties of speech, such as
intonation and timing. This project focuses on the prosodic properties of
longer stretches of speech - sequences of sentences and paragraphs. The
goal is to explore how prosody, specifically durations, is organized over
larger units of speech.

The approach adopted here is to compare different languages, with known
differences in timing at segmental, word or phrase level, to see how they
differ in structuring timing over an entire discourse. The languages that
will be compared are English, French and Japanese. Improved understanding
of discourse-level timing will help to explain the relation between
durational patterns and linguistic structure.

The project is organized into four phases: (1) a production study to
investigate what factors influence durational patterns in longer stretches
of speech; (2) modeling of the results of the production study; (3)
analysis-synthesis incorporating the model of durations into synthesized
speech; and (4) testing the resulting synthesis through evaluation by human
listeners. The durational properties to be examined include amount of
lengthening at sentence boundaries, duration of pauses, and changes in
speech rate before and after a boundary. Comparisons among the three
languages will identify the factors that are important in influencing
durations, and help explain how these factors relate to the different
linguistic structures of the languages.